Financing New Business Formation: An Empirical Analysis

New firm creation is a vital element of technological innovation, job creation, and economic growth. While research has shown that new firms have grown to dominate industries like biotechnology, computers, communications, and many others, relatively little is known about how these firms are financed in their earliest stages. The optimal source of financing is likely to vary depending upon the industry, the firm's stage of development, and the time period observed. The purpose of this project is to collect data from 1553 firms that issued equity in an initial public offering (IPO) between January 1, 1978 and December 31, 1987. Registration documents filed with the SEC contain information on the sources of financing, pre-IPO performance, and pre-IPO investment patterns for companies that are planning to go public in the near future. Creating a database with this information would be indispensable for future research on factors affecting new firm financing and growth. The collection of a large database on the financing history and pre-public operating performance of private firms will create numerous research opportunities. Some of these topics include: How do industry and firm specific characteristics interact to determine the optimal source of capital? How does firm performance affect who gives firms their financing to grow? How do the sources of financing affect the speed at which the firm can grow? Have there been secular changes in the sources of financing over the time period? Does the presence of a professional investor, such as a venture capitalist, improve the pre-public performance of a company compared to a firm that has not received venture capital financing? These are only a few of the questions that the data can address.